ROW: The Effect of Admixture on the Morphology of Aggregate/Cement Paste and Steel/Cement Paste Transition Zones

This proposal is for career advancement under the Research Opportunities for Women program of the National Science Foundation. The principal investigator intends to enhance her career in research by collaborating with investigators at the University of California, Berkeley in the study of the interfaces in aggregate/cement and steel/cement systems. Particular emphasis will be placed on the relationship between interface morphology and the corrosion initiation of steel in concrete. Specimens of concrete with embedded steel rebars will be subjected to controlled environment, such as sodium salt solution, for various periods of time. During the test the open-circuit potential, which has been shown to be a good indicator of corrosion initiation, will be monitored. Periodically, the tests will be interrupted and the hydration phases and pore distribution at the interface will be analyzed using back-scattering electron imaging coupled with an image analyzer. The effects of admixtures will be studied by preparing concrete specimens with 10 weight percent replacement of cement by silica fume. The research is intended to contribute to the knowledge and understanding of concrete microstructural properties and their impact on the corrosion process of steel in concrete.